New Biopolymers

Lipids capable of forming head-to-tail linear polymers will be derived from phosphatidylethanolamine (PE) which contains a primary amine on the headgroup and two long alkyl chains. PE analogs containing a terminal carboxyl group in one or both alkyl chains are the prototype polymer forming material that will be prepared. Head-to-tail polymerization will be via amide bond formation between the PE head group amine and the terminal carboxyl groups (s) in he alkyl chains. A terminal carboxyl group on one chain can form a linear bio- polymer, whereas, a terminal carboxyl group on both PE alkyl chains will permit a branched polymer to form (Scheme2). This new class of biopolymers will be tested for biodegradation using phospholipase A1, phospholipase A2, phospholipase D, and phospholipase C (see Scheme 3). The lipases enzymatically cleave phospholipids at different sites and consequently these lipases may digest head-to-tail phospholipids. The ability of lipases to degrade HTT polymers will depend on the substrate specificity of each lipase. It is likely that lipase degradation will significantly vary depending on the polymer conformation, size alkyl chain lengths of the lipid, etc. Thus the exploratory work described in this proposal is particularly high risk. However if we can establish feasibility , then the potential pay off from the different polymers is enormous.